Collaborative Research: GCR: Non-Equilibrium Electrochemical Plasma Catalysis for Distributed Electrified Ammonia Synthesis

Ammonia is an alternative option for storing and transporting power over long distances. Traditional large-scale ammonia synthesis heavily relies on fossil fuel use and requires high temperatures and pressures, making such methods both energy and carbon intensive and unsuitable for widespread production. This project is creating a novel electrified, distributed, and efficient chemical reactor to produce ammonia with renewable electricity directly from nitrogen and water. Such systems will not only provide a potential solution to decarbonization in chemical plants but also help address challenges of renewable electricity such as intermittent supply, regional dependence, and problems with energy storage. The project also contributes to US leadership in manufacturing and nurtures future US leaders and innovators in energy and chemical engineering sciences and technology.

This GCR project is developing a new non-equilibrium electrochemical plasma catalysis (NE-EPC) system for efficient, distributed, electrified ammonia synthesis from water, nitrogen, and renewable electricity. It is investigating a newly proposed non-equilibrium plasma assisted Mars−van Krevelen (PA-MvK) plasma catalysis mechanism. It is developing novel electrochemical membranes using cation and anion doped tungsten oxides for efficient proton intercalation and hydrogen atom transport as well as a ferroelectric plasma system with hybrid discharge to control atomic and vibrationally excited nitrogen generation to facilitate in situ membrane surface nitridation and efficient ammonia synthesis. Time-resolved in situ diagnostics of plasma properties, electrons, atoms, and vibrationally excited molecules is being conducted using advanced laser diagnostic methods, such as femtosecond coherent anti-Stokes Raman scattering. The effect of surface crystalline structure, element ratios, N-vacancy sites, and mitigation on the NE-EPC reaction pathways is being examined by using atomic-scale 4D scanning transmission electron microscopy and X-ray photoelectron spectroscopy. Experimentally validated quantum chemistry and machine learning modeling are also being developed to discover novel membrane materials and catalysts for NE-EPC. The project will provide a paradigm shift of foundational science and technology innovation to advance non-equilibrium chemical manufacturing.